Measurement of Atmospheric Composition

The measurement of the atmospheric composition with height is of major interest in studies of the dynamics and energy transport in the atmosphere. One of the major tasks in this area is the global determination of these quantities. One technique currently under study is the use of twilight excited emissions to determine the height distribution of the constituents. Many sophisticated instruments are being used to investigate this topic and this proposal is primarily aimed at the preliminary development of a simple tilt-filter photometer to provide the data needed for a specific emission. Included are the development of techniques to derive concentrations from the emission intensities and a series of observations in consort with some of the more sophisticated techniques being used to validate this photometric approach.